Integrable Systems and Calibrated Geometry

Abstract

Award: DMS-0306947
Principal Investigator: Gang Tian

This proposal consists of three projects in integrable systems
and calibrated geometry to be conducted by Emma Carberry. The
first of these centers on complex tori in the nearly-Kaehler
6-sphere. Isotropic surfaces in the 6-sphere have been
classified by Bryant and include all rational examples. I
propose to find an algebro-geometric description of the
non-isotropic complex tori. This description will involve an
algebraic curve called the spectral curve, and hence give rise to
a natural invariant of the torus, namely the genus of its
spectral curve. The existence of tori for each value of this
invariant will then be investigated and the characterization used
to produce examples. Cones over these tori are associative in
the imaginary octonions, which provides additional geometrical
motivation for their study. The second project concerns the
energy of minimal tori in the 3-sphere. Ferus, Leschke, Pedit
and Pinkall have an estimate for the energy in terms of the
spectral genus, which provides exciting progress toward the proof
of the Willmore and Lawson conjectures, but fails to say anything
about these conjectures when the spectral genus is low. It is
precisely the low-genus cases upon which we shall focus, using
spectral curve techniques. The final project concerns the
possible singularities of special Lagrangian 3-folds, a topic of
considerable current interest due to its role in mirror symmetry.
Specifically, cones over tori will be studied and the question of
whether the links may be real-algebraic will be addressed.

Energy is a fundamental quantity; physical systems seek to
minimize energy or at least to find (possibly unstable) critical
points of it. One typically studies critical points of energy,
for example minimal submanifolds, which appear in all of the
above proposed projects. These have a long and distinguished
history in both mathematics and physics, and remain subject to
much attention. Absolute energy minimizers are rare and
difficult to locate. However one source of them is calibrated
submanifolds, of which both associative and special Lagrangian
submanifolds are examples. Special Lagrangian submanifolds have
other interesting applications to physics. In super-symmetric
string theory, the universe is modeled as a ten-dimensional
object, consisting locally of the familiar four-dimensional
space-time, and a six-dimensional space (a Calabi-Yau manifold)
that is compact, and hence sufficiently 'small' that one does not
observe it in everyday life. A popular approach to deepening our
understanding of these Calabi-Yau manifolds is to study their
special Lagrangian submanifolds.